Proposed Conference Support for SCOPES 05

The 9th International Workshop on Software and Compilers for Embedded Systems (SCOPES) will take place September 29th through October 1st, in Dallas. The scope of the workshop is software for embedded systems, with emphasis on code generation (compilers) for embedded processors. This award supports the first meeting of this international embedded systems workshop series to be held in the United States, and it supports participation by graduate and undergraduate students.